U.S.-Japan Joint Seminar: Fracture, Form, and Fractals/ September 1989/Lake Arrowhead, CA

This award will support a seminar, "Fracture, Form, and Fractals," organized jointly by Prof. Charles Sammis of the University of Southern California, and Prof. Masanori Saito of the Tokyo Institute of Technology, Japan. Participants will meet at Lake Arrowhead, CA, on September 24-27, 1989, to exchange information and ideas on the subject of the application of fractal geometry, in which identical forms are repeated on various size scales, to research into geological fracture. Observations of fractal geometry have recently been quantified and incorporated into mathematical models for such tectonic processes as earthquakes, and into descriptions of the internal structure of fault zones. However, many fundamental questions regarding the physics of the failure process which produces fractal fracture patterns, the significance of the fractal dimension scale, and upper and lower fractal limits, remain. Considering the large amount of recent research on these questions in both the U.S. and Japan, and the importance of this research to geology in general and earthquake prediction in particular, this meeting is timely and likely to have important impact.